U.S. - Spain Cooperative Research Program: Polyether Toxins

Under this interagency transfer, the Department of State will support, under the U.S.-Spain Program for Scientific and Technical Cooperation, a study of the complex structures of recently identified polyether marine toxins by Dr. Koji Nakanishi of Columbia University. This study will utilize nuclear magnetic resonance (NMR) and circular dichroism (CD) techniques to study simple synthetic models with the structural features encountered in polyether toxins. The results will be compared with X- ray data when available. The NMR parameters will be correlated with the CD data to determine both relative and absolute configurations of these models. The basic data will then be applied to naturally occurring complex polyether toxins to determine their full structures.